Dissertation Research: The Cultural Construction of Inequality Among the Luo of Western Kenya

This research project will examine the role of indigenous categories of inequality in the construction of contemporary social and economic relations among the Luo of western Kenya. The investigator will focus on Luo concepts which traditionally have defined differential access to resources based on kinship status. She will test the hypothesis that these traditional cultural cateogies are still important, even in the face of increasing social and economic differentiation resulting from the emergence of a capitalistic economic system. This project will explore the interaction between external forces of capitalism and indigenous cultural categories of relationship as they relate to the emergence of class forms. The results will increase our understanding of the processes of change and stratification in African societies.